U.S.-Germany Cooperative Research in Nonlinear Optics

This award supports Professor David J. Kaup of Clarkson University to collaborate in nonlinear optics research with Dr. Heinz Steudel of the Central Institute of Optics of the Academy of Science of Berlin, Germany. The objectives of their joint research are to develop new solutions and applications of integrable systems to nonlinear optics, including such phenomena as Stimulated Raman Scattering, Two- Photon Propagation, Superfluorescence, Three-Wave Interactions and Harmonic Generation. This modest support for Dr. Kaup's visits to Berlin and other forms of communication will add impetus to their collaboration which has been extremely productive recently. With current technology, it is possible to generate coherent pulses whose widths are on the order of, or less than, typical relaxation times. In these cases, entirely new coherent phenomena can occur which offer the possibility of new technological applications. While considerable effort has been devoted to the development of relevant mathematical techniques and solutions, very little work has been done to explain the experimental results. The collaborating U.S. and German scientists in this project have been involved for many years in the development of the mathematical descriptions of such coherent phenomena. They now propose to develop practical applications from the existing theoretical base.